1996 Summer School on Advanced Functional Programming; Pacific Software Research Center, Portland, Oregon

The Pacific Software Research Institute is holding a summer school on advanced functional programming techniques. The school is designed to be of use to university faculty, industry and government workers interested in software technology. It will also bring together a group of leading researchers in advanced functional programming to lecture and interact with the other participants. This will allow in-depth discussion by both researchers and practitioners in the field, providing an assessment of the state of the art and new directions of research needed.